Program Derivation for First-Year Computing Students

This project develops the first-year courses in computer science centered around program derivation methodology in the believe that formal mathematical methods, such as program derivation methodology, provide part of the solution to the problem of software reliability. The derivation methodology provides techniques for "calculating" programs which probably satisfy their specifications. This project will adapt, extend, and improve the methodology so that it is taught effectively to freshmen. Skills acquired by students in these first-year courses will make possible a higher level of instruction and student work in advanced courses. The new first-year courses are the foundation for a revised computing curriculum at Southwestern University demonstrating the feasibility and desirability of an undergraduate computing curriculum based on formal mathematical methods.